Enhancing nonlinear optical processes at low light level with atomic coherence

Experimental and theoretical studies on enhancing nonlinear optical processes at very low light (single-photon) levels in multi-level atomic systems with and without an optical cavity form the focus of this activity. The main objectives of the project include (i) understanding the nonlinear interactions between electromagnetic fields and multi-level atomic systems at low light level, especially the quantum correlation and quantum statistical properties in such systems; (ii) linking the fundamental researches of atomic coherence and quantum interference in multi-level systems to practical device applications in optical communication; and (iii) demonstrating a practical opto-electronic device concept in semiconductor nanostructures based on quantum interference effects in multi-state systems.